Calculus Curriculum Development

A non-traditional, entirely new course is being developed under this pilot project through live Mathematica notebooks. Emphasis is placed upon individual student use of the Mathematica program for instruction, computation, and symbolic manipulation within the Mathematica notebooks. The goal is to motivate the students to better understand the foundations and enable them to execute calculations far beyond those expected of students in the traditional course.